Geospatial Education Workshop: Integrating Remote Sensing and Geographic Information Systems for Technology Workforce Training at Two-Year Colleges

This project is providing partial support of a workshop that is bringing together leaders in GIS/Remote Sensing education from two and four year colleges; representatives from the US Geological Survey, NSF, NASA, and other interested Federal and State agencies; the National Council for Geographic Education; the American Association of Community Colleges; the Environmental Science Research Institute (ESRI); and other leaders in GIS education to examine workforce needs in GIS/remote sensing, assess existing college programs, and examine the incorporation of remote sensing education into existing GIS programs at community colleges. The effort is receiving additional funding support from NASA, USGS and ESRI, and also involves participation by the Department of Labor. NSF is also providing meeting space for the workshop, and managing funds provided by the other Federal agencies.